Gradientless Spinning Film Reactor for Gas-Liquid Reaction Studies

This research work is developing a new experimental reactor for the kinetic study of gas-liquid reactions. Called the gradientless spinning film reactor (GSFR), it comprises a film which flows along the walls of the reactor, which in turn is a horizontal cylinder rotated about its axis. The research will investigate spinning film flow, gas mixing, liquid mixing, gas-side mass transfer, liquid-side mass transfer, and gas-liquid reaction rates utilizing the unique properties of the GSFR. These results are needed in the design and scale-up of multi-phase reactors. A further extension to three-phase (gas-liquid-solid) systems is anticipated.